Virginia HBCU Consortium for Science Education

This proposal provides a plan for the establishment of a consortia program of teacher enhancement and instructional improvement in science. The consortium involves three Historically Black Colleges and Universities in three regions of the Commonwealth of Virginia. This consortium effort will establish mechanisms for school system science education improvement. The institutions will provide training in science content and pedagogy focused on minority student achievement with the intent of increasing the pipeline to science careers for minority students. Instructional and project delivery mechanisms will include Saturday courses, summer workshops, satellite and teleconferencing facilities, and electronic news networks. All courses will be credited, if desired by participants, and structured to meet criteria for Masters' Degree Programs at Hampton University. Cost sharing is equivalent to 21% of the NSF award.